University of Arizona High Speed Connectivity Project

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in atmospheric sciences, astronomy, computer science, high energy physics, telemedicine, and geosciences. Collaborating institutions include most of the Internet 2 institutions.